3rd Engineering Foundation Conference on "Reaction Engineering for New Materials and Processes"

Reaction engineering deals with the quantification of molecular interactions at solid surfaces, transport phenomena, dynamics and control of reacting systems and the interplay of all. The application of reaction engineering principles is essential in experimentation, scale-up, and design for chemical, biochemical, petroleum, electro-chemical, and other processes. Reaction engineering is an interactive discipline whose initial applications were confined to the petroleum and chemical industries. Current utilization of these principles is spreading to the biotechnology, electronics, and specialty chemical industries where the emphasis is upon new materials. This Third Engineering Conference in reaction engineering will be conducted in the "Gordon Conference" style and will concentrate on new materials and processes. The first meeting in 1983 attempted to assess the state of chemical reaction engineering and the second one in 1987 placed emphasis on new frontiers in reaction engineering. This third meeting will look at the production of new materials and will specifically cover four areas: (1)catalyst design, (2)ceramics, electrical, optical and magnetic materials, (3)the role of chemical reaction engineering in bioprocessing, and (4)polymers and composites. It is hoped that the meeting will achieve timely and creative exchange of ideas, will broaden participant viewpoints, will increase industry-academic interaction, and will improve the education and exposure of young researchers.